Phase I: Reformulating Media Computation with Functional Programming, Scripting,

Computer Science (31)

The "Reformulating Media Computation with Functional Programming, Scripting, and Design Principles" project is integrating the Scheme functional programming language into the media computation framework.

Intellectual Merit: This project is evaluating if the functional programming language paradigm is an effective way to introduce media computation to students. It is developing the educational materials required to support media computation using Scheme, Script-Fu, and the Gnu Image Manipulation Program (GIMP).

Broader Impact:
It has already been shown that the media computing approach appeals to underrepresented groups; this project is exploring if functional programming will increase or detract from that appeal. The project is creating an approach to media computation which is enabling students outside of computing to obtain skills in media computation. Results are being disseminated through a series of workshops and presentations at both regional and national conferences.